Automated Optical Fiber Analysis System for Fiber-Optics Laboratory

The Department of Electrical and Computer Engineering Technology at Southern Technical Institute will purchase an automated optical fiber analysis system. This system will be housed in the new Fiber-Optic Communication Laboratory which is to be part of the department's Wilder Communications Complex. The system will provide the department's 1,100 undergraduates with state-of-the-art automated test and measurement experience in the new technologies associated with fiber optics. The students will use the computerized system to analyze the performance of optical fiber waveguides, of various fiber-optic light sources and detectors, and of entire fiber-optic communication systems. This laboratory experience will allow the department's graduates to make immediate contributions in the burgeoning new fiber-optic communication industry.